CSEMS@PCC

Pasadena City College (PCC) is establishing a Computer Science, Engineering, and Mathematics (CSEM) Scholarship Program. Forty talented and economically disadvantaged students are chosen as scholars each year. Individual counseling, career guidance and faculty mentoring are provided to the scholars. Scholars also experience activities such as field trips to nearby colleges and research institutes like Caltech and JPL, seminar talks by professionals in CSEMS fields, and workshops on topics relevant to college life and the transfer process.